1992 Southeast Regional Developmental Biology Conference Clemson University, Clemson, South Carolina, May 22-24, 1992

The 1992 Southeast Regional Developmental Biology Conference will be held at Clemson University on May 22-24, 1992. The conference will be composed offive sessions: 1) Gametogenesis/ Fertilization/ Early Development; 2) Morphogenesis and Cell Interactions; 3) Plant Development; 4) Differentiation and Determination; 5) Gene regulation and Expression; and 6) Cell Cycle Regulation. The sessions will be composed of approximately equal numbers of talks by accomplished investigators and talks by postdoctoral and graduate students. Two nationally prominent developmental biologists will give keynote addresses. All participants will have the opportunity to present posters. Support from the NSF will defray room and board expenses for graduate students attending the Conference.